Advances in Modern Performance Analysis: A New Approach

The future high-speed networks are expected to support a variety of services such as data,
voice, image, and video with diverse traffic flow characteristics and Quality-of-Service (QoS)
requirements. Developing a framework for the design, control and management of wide
area packet networks which can effciently support such QoS requirements is a fundamental
challenge.

Conventional frameworks for the teletraffic analysis of networks and QoS guarantees are
either deterministic or probabilistic. In the deterministic approach, the worst-case traffic
envelopes are used. This most likely will lead to conservative resource allocation policies
and inefficient usage of the network resources. In the standard probabilistic frameworks,
the traffic is usually modeled as a variant of Poisson process, e.g., MMPP, MAP, etc. Such
models are amenable to traditional teletraffic analysis but only capture simple and limited
correlation structures in the data.

The researchers propose to significantly expand the analytical methodology in solving complex teletraffic problems arising in modern computer and communications networks. Their approach
which is rooted in classical ballot theorem handles a large class of arrival processes including
the standard Markovian processes, general periodic processes, processes described by
time-series (auto-regressive and moving average), or even general processes described by the
joint distribution of number of arrivals in equally-spaced non-overlapping discrete intervals.
Special attention will be paid in deriving algorithmic solutions which are numerically robust
and efficient even when the system utilization is high.

The researchers proposed approach is unifying, it avoids root-findings, and unlike the matrix analytical approach or recently introduced state-space spectral decomposition method, it does not
involve potentially expensive iterations. Further, it is transform-free and may provide a
simple form of solution amenable for further analytical studies such as tail behavior or
asymptotic analysis.

The researchers general arrivals processes could be used for the end-to-end performance analysis once the departure process from a network node is appropriately approximated or probabilistically
bounded. Since they are not limited to traditional Markovian models, such an approach
appears to be viable.

The researchers propose to implement our general algorithms and make them available as a scientific package to the research community.